CAREER: Efficient Algorithms in Scheduling, Network Algorithms and Biology: Theory and Practice

9624828 Stein Algorithms and Biology: Theory and Practice Combinatorial optimization problems arise in fields as diverse as transportation,communication, large-scale computing, and biology. This project focuses on three fundamental areas in combinatorial optimization:(1) Scheduling, including good average-case scheduling algorithms and algorithms for scheduling a network of processors;(2) Flows and Cuts, including multicommodity flows, minimum cuts, and shortest paths;(3) Computational Biology, including problems that arise as part of the human genome project, algorithms for DNA folding, and techniques for studying evolution. The Integrated Educational Plan of this CAREER Grant includes curriculum reform, new course development, training of teachers in new technologies, and outreach to high school students. ***